GIS: New Skills for the Workforce

A dedicated Geographic Information Systems (GIS) Laboratory supports the laboratory teaching and learning activities for two GIS introductory courses. Additional advanced GIS courses result in the establishment of a comprehensive GIS program. GIS courses also support two occupational /technical programs Engineering Technology and Computer-Aided Drafting /Design. The objectives of the project include refining the curriculum of the two GIS courses; providing students with hands-on laboratory activities to facilitate learning of GIS principles; preparing and training faculty with the theoretical foundation and technical skills to teach GIS; and using the two GIS courses as the foundation for a comprehensive GIS program and to support occupational/technical programs. The evaluation plan includes both process evaluation and outcome evaluation components that will use qualitative and quantitative techniques to evaluate the project and faculty/student outcomes. *